Postdoctoral Fellowship in History and Philosophy of Science

Dr. Fuller is examining the attempts by the social sciences to establish their professional standards and disciplinary boundaries. Dr. Fuller argues that the social sciences did this by consciously imitating the examples of the natural sciences. In order to establish this position, Dr. Fuller will examine historical accounts of the debates over the scientific status of the social sciences, especially anthropology, sociology, political science, economics and psychology. He will use as sources the so-called canonical histories, namely, ones written by disciplinary practitioners with an eye toward justifying the course that the discipline's development has taken. The success of such histories necessarily involves the persuasive reconstruction of the past that is the purview of the rhetorician. He will sample canonical histories of each of the disciplines from different periods in the last 100 years. Dr. Fuller will undertake this study under the guidance of Dr. Donald McCloskey, an economist who has pioneered the study of the role of rhetoric in the development of the social sciences.